In Influence of Risks, Returns, and Opportunities on Criminal Decisionmaking

The as yet little understood decision to commit a crime is importantly determined by the perceived costs, rewards and opportunities. Further the effects of prior experiences with the criminal justice system are important in shaping those perceptions. Dr. Matsueda utilizes a unique longitudinal data set which has as its foci a population that is likely to be criminally disposed and serious criminal acts to examine the criminal decision-making process. His research not only will increase our understanding of this process, but also will contribute to the integration of the sociology of crime and the economics of crime. Specifically, taking differences by age, race, sex and histories of prior arrest and incarceration into account, Dr. Matsueda will test both a complete and a limited rational decision-making model of criminal behavior. This research should add an important component to our understanding of the motivation of people at high risk for committing crimes.